Next Generation Software: ACM 1999 Workshop on Java for High-Performance Network Computing

This proposal is seeking support for students attending the ACM 1999 Java Grande Conference (formerly ACM Workshop on Java for High-Performance Network Computing). Java and Web technology have become very important for the development of new distributed applications and emerging electronic commerce systems. Likewise, we expect Java to play an increasingly important role in the broad area of high-performance computing; including engineering and scientific computing, simulations, parallel and distributed computing, data-intensive applications, and other applications that combine communication and computing. This area of high performance network computing is the focus of the conference. The conference is aimed at getting a broad perspective of community interests and views, as well as more technical discussions. The goal is to provide feedback to users and language developers on what is required to successfully deploy Java in scientific and high-performance computing environments.